Microscopic Theory of Nuclear and Hypernuclear Structure and Reactions

0099452
Halderson
This proposal has projects in two areas of nuclear theory. The first project will use the recoil-corrected continuum shell model (RSCCM) to investigate nucleon induced reactions on light nuclei, in particular those nucleon capture reactions of astrophysical interest. The recent extension of this model to p-shell nuclei allows the study of single neutron halo nuclei, polarized electron scattering data, and a variety of other topics including the effective interaction of nuclear structure theory. The second area of research is in the study of the hyperon-nucleon interaction with meager experimental input from scattering and binding energy systematics of light hypernuclei. The RCCSM, by allowing the hyperon to be bound or unbound, is particularly suitable for hypernuclear structure calculations because bound state excitation and quasi-free scattering are included in one consistent framework. The theoretical understanding expected from this work would be useful for experiments both at Brookhaven and Jefferson Lab.